CAREER: Rational Language Processing with Uncertain and Noisy Input

This CAREER award investigates how humans integrate a wide variety of
information sources to achieve rapid, accurate natural language
comprehension subject to the physical and cognitive constraints under
which it takes place. The project's primary empirical focus is on
reading, a mode of information exchange of unexceeded importance in
literate societies. Reading involves a rapid sequence of targeted eye
movements throughout a text -- recordable through modern eye-tracking
technology -- from which noisy sensory input are obtained and
integrated with prior knowledge to resolve perceptual and linguistic
uncertainty. The central goal of this project is thus to develop,
implement, and test a computational model of language comprehension
and eye movement control in reading built on principles of
probabilistic inference and rational action, using the tools of
natural language processing (NLP) technology, reinforcement learning,
and behavioral psycholinguistic experimentation.

The success of this project is likely to have major impact in the
field of human sentence processing, bringing a new level of nuance and
detail to both theory and data analysis, and will bear on broad
current debates in cognitive science regarding rationality in
cognition. Additionally, the results of this basic research project
have a wide range of potential applications ranging from intelligent
tutoring technology to language-impairment diagnosis to cognitive
ergonomics. Together with this research program, the project involves
an educational program including a new textbook on probabilistic
models in the study of language, new undergraduate and graduate
courses, and tutorials and courses on computational psycholinguistics
at major conferences and summer institutes.

This CAREER award is co-funded by two directorates:: CISE/IIS and SBE/BCS.